Vortical Structures in Turbulent Shear Flows and Their Implications for Subgrid Scale Modelling.

9221023 Wallace A combined experimental and numerical modeling investigation is to be conducted on equilibrium and non-equilibrium turbulent boundary layers. The experimental part will utilize unique multi-element hot wire probes previously developed by the investigator. The plan is to use a two-probe arrangement of these instruments to obtain two-point turbulence information which characterize spatial extent and coherence of organized turbulent structures. One of the issues to be addressed is energy transfer from small to large scales, or backscatter. The modeling component is aimed at incorporating the effects of backscatter into Large Eddy Simulation models. Concurrent Direct Numerical Simulations are to complement the experiments. Large Eddy Simulation modeling is an important predictive tool for complex turbulent flows. Many important features are still not accounted for, and more realism will permit more accurate engineering predictions. ***